Conference on Nondestructive Evaluation of Civil Structures and Materials

This project will conduct an international conference in Nondestructive Evaluation of materials and structures. The objective is to bring together the researchers practitioners, designers and to collect the information available on the equipment and application of nondestructive evaluation methods for construction materials and large structures. Proceedings will be published and widely distributed.